Modeling the Viscoelastiodynamic Response of the Wasatch Mountains, Salt Lake Basin and Mountaindale Dam, Utah

This research is to define by gravity and active seismic refraction methods the subsurface structure of the Salt Lake Valley, Utah, model the resulting structure in a 3-D finite element code for response to earthquake waves, and compare the result with recorded data from earthquakes. The research is expected to provide a new understanding of the competing interactions among the effects of attenuation, topographic scattering, basin resonance, body-to-surface wave conversion at basin boundaries, and coda enhancement. The topographic scattering results will be applied to dam sites in the Wasatch Range, Utah, to determine if conventional earthquake response design criteria are adequate. This research is a component of the National Earthquake Hazard Reduction Program.